Thermocapillary Instability in Microgravity Environments

In the floating zone method of crystal growth the thermal gradient imposed along the free surface causes toroidal convection cells. As the temperature gradient is increased it has been observed experimentally that the steady convection cells lose stability and an oscillatory pattern develops. In an effort to discover the mechanism associated with this bifurcation to oscillatory behavior , modern dynamical systems theory and bifurcation theory will be applied to fluid flow in a cylindrical domain with a free surface to provide a qualitative picture of the existence and stability of solutions in the parameter space. Simultaneously the governing equations will be solved numerically, using a spectral element code to generate the steady convection cells. These will serve as the base flow for the numerical linear stability analysis. The code will also be used to search the parameter space for the various unsteady solutions described by the bifurcation analysis. The combined attack of analysis and numerics will reveal the mechanism involved in the loss of stability of the toroidal cells, and more generally, will contribute to our understanding of the effects of thermocapillary forces in a microgravity environment.